The Barrett Lectures May, 2001 "New Directions and Developments in Computational Mathematics

The investigator and his colleagues organize the 2001 John H. Barrett
Memorial Lectures in the University of Tennessee at Knoxville from
May 10-12, 2001. The Barrett Lectures have been held annually since 1972.
Each year a different topic is chosen, representing the research interests
of the mathematics faculty of the University of Tennessee.
Since 1993, the lectures have consisted of three
one-hour survey talks by each of three leading researchers
representing different themes/directions in a single field. The topic of
the 2001 Barrett Lectures is: ``New Directions and Developments in
Computational Mathematics". The focus of the lectures is parallel
numerical algorithms for partial differential equations and their
implementations and applications. The main speakers of the 2001 Barrett
Lectures are Jinchao Xu of Penn State University, David Keyes of
Old Dominion University and ICASE, and Mary Wheeler of University of
Texas at Austin. Each of them will deliver three one-hour survey lectures
on recent developments on parallel numerical algorithms with three
different emphases: theory (Xu), computer implementation (Keyes),
and application (Wheeler). In addition to the main speakers, six
speakers are also invited to give one-hour talks on topics related
to one of the main lectures.

The Barrett Lectures are partly funded by a grant from Tennessee Science
Alliance, and have often received additional support from the National
Science Foundation. They attract wide interest, with an audience of between
40 and 50 participants from the whole country, in addition to faculty and
students from Knoxville and the Oak Ridge National Laboratory. They represent
one of the few long standing lecture series in mathematics in the southeastern
United States. The main objective of the 2001 Barrett Lectures is to provide
the participants with an exposition of parallel numerical algorithms for
partial differential equations arising from various
scientific/engineering/industrial applications, through in-depth survey
lectures and informal discussions with the above three leading researchers
in the field. Additional goals are to foster interdisciplinary collaboration,
particularly with researchers in the Computer Science Department and in the
College of Engineering at the University of Tennessee and several other
southeastern institutions, and to generate a set of written surveys in the
subject, which the organizing committee will endeavor to have published
in book form. The fund being requested from the NSF will be spent
providing partial support towards travel and accommodation for $20$ graduate
students and recent Ph.D.'s who do not have research grants.